Collaborative Research: SaTC: EDU: Education on Securing AI System under Adversarial Machine Learning Attacks

Artificial Intelligence (AI) has reached groundbreaking milestones in recent years. Its usage has spanned critical application domains, such as computer vision, audio perception, and natural language processing. However, these breakthroughs come with substantial security challenges. The machine learning (ML) models serving as the computational cores of AI systems are inherently vulnerable to attacks. By exploiting vulnerabilities in AI systems, adversaries can make the models produce incorrect predictions, leading to serious consequences such as misinterpreting traffic signs for autonomous vehicles or generating incorrect responses in speech recognition systems. Current AI-related educational efforts are limited on teaching the security perspective of ML. To bridge this gap, this project aims to develop comprehensive educational modules to prepare students and future engineers to address these ML security vulnerabilities and achieve trustworthy AI. By creating a practice-in-the-loop learning experience, students can obtain hands-on experiences with the security vulnerabilities of ML models and corresponding solutions.

This project will develop a comprehensive educational program that focuses on three key perspectives of AI security. First, this project will create a practice-in-the-loop learning experience for students to understand the security of ML in computer vision, such as image recognition and object detection. Educational modules will be developed to cover various ML models for vision sensing and their security vulnerabilities and solutions. Second, this project will extend the interactive learning experience for students to understand the security problems of ML in voice assistant systems, such as speech recognition and speaker identification. The educational modules will be developed to introduce ML models for audio data processing and security vulnerabilities in voice assistant AI systems. Third, this project will develop software-based labs and training projects to enhance students’ understanding. The outcomes of this project, such as teaching slides, software labs, and training projects, will enable various undergraduate student training and outreach activities. They will also be disseminated online and through academic publications, ensuring diverse communities can readily access and employ the educational resources.